Mathematical Sciences: Research and Complex Analysis and Analytic Geometry

9400872 Larusson The research entails applying elements of function theory in several complex variables combined with Hodge theory to investigate the geometric and convexity properties of covering spaces of complex manifolds. Also, the existence of bounded holomorphic functions on Riemann surfaces with a large group of automorphisms will be investigated. The research has potential applications to other areas of mathematics including algebraic geometry and number theory. ***